SBIR Phase I: Scalable Location Data Management

This SBIR Phase I research project seeks to develop asset tracking methods for complex environments. Location-based data methods will be built as a middleware platform that leverages the strengths of traditional systems for managing simple alphanumeric data. Research will include the necessary steps to develop simple demonstration applications that can be used to show scalable querying, updating, and location based trigger evaluation features.

The expected outcome is a system that augments existing data management applications with powerful location-based data management capabilities that informs critical business decisions. The proposed methods could lead to improved efficiencies in applications where asset tracking represents a significant resource drain. For example, commercial deployment of these methods could prevent a nurse from spending hours searching for lost diagnostic equipment, leading to improved efficiencies and eventually eliminating what is now an issue costing individual care units hundreds of thousands of dollars a year.